Image Guided Percutaneous Robotic Assisted Therapy

9520501 Anderson Research will be conducted to develop critical enabling technologies and systems for precise, minimally invasive delivery of localized treatment for tumors and other soft tissue lesions. The goal to register 3-D rendered CT images with real-time fluoroscopy to identify and locate tumors in the liver and to use this information to direct a remote center-of-motion robotic manipulator for fast and accurate targeting of the lesion and to deliver a preplanned pattern of localized therapy using percutaneous approaches. Success with this research would replace more costly surgery or provide a therapeutic alternative to individuals in whom surgery would be contraindicated. This technology has a significant potential to reduce health care costs and to improve the quality of life for a very large number of patients. 3D image-guided surgery and therapy is a challenging and important new field of medicine that holds enormous promise to benefit the patient while simultaneously reducing the cost of doing the procedure. ***